T-DNA Insertion Mutants Affecting Lipid Metabolism in Arabidopsis

Traditional biochemical approaches have been largely unsuccessful in the study of the membrane-bound enzymes involved in lipid metabolism. The characterization of mutants of Arabidopsis deficient in lipid biosynthesis provides opportunities to clone the genes involved without first purifying the corresponding proteins. Chromosome walking will undoubtedly be successful, but this approach requires a very large amount of effort for each gene cloned. This project determines whether any mutants in lipid metabolism can be identified in a population of 1,800 Arabidopsis lines containing stably integrated T-DNA inserts. When a mutation is found and shown to cosegregate with the kanamycin resistance marker located in the T-DNA, then a substantial effort to complete the cloning and characterization of the gene is justified. Fatty acid unsaturation is a determinant of the quality and economic value of the product from oilseed crop species. Because of the importance of unsaturated fatty acids in human health, it would be advantageous to be able to control the degree of unsaturation of the lipids in these species. A crucial step toward this goal is to understand the molecular basis of desaturation. This research provides for this by identifying fatty acid mutants to be used for the isolation and cloning of genes encoding the enzymes responsible for desaturation. This further allows for the development of strategies to alter usefully the fatty acid composition of vegatable oils.